Light Scattering Studies of Semiconductor Heterostructure Interfaces and Carbon-Based Materials

Fundamental research to elucidate phonon and electron-phonon properties of limited dimension electronic/photonic materials structures, particularly quantum well structures of compound semiconductors, and the recently discovered superconducting fullerenes, K3C60 and Rb3C60 will be conducted. The research is of particular interest for providing a sounder scientific basis for the improvement of epitaxial growth and materials processing techniques, critical to advanced electronics and photonics science and technology. %%% This research is expected to provide deeper fundamental understanding of basic properties of electronic/photonic materials. From an application point of view, understanding these properties and their relationship to materials synthesis and processing is beneficial to semiconductor device design and fabrication. The results will be of importance in a general way to the technology of large scale, high speed integrated electronic and photonic devices and circuits.